SBIR Phase II: Computer-Aided Mosaic Design and Construction

This Small Business Innovation Research (SBIR) Phase II project will develop a computer-aided mosaic
design and robotic assembly system for automation of a centuries-old manual process. Despite their
prominence in art and architecture, mosaics are arduous to design and assemble. Labor-intensive
methods have stubbornly resisted automation, adding considerable cost and delay to projects. Artaic's
Phase I research proved feasibility of computer-aided design software to create renderings and digital
blueprints of artisanal mosaics by introducing a streamlined, procedural workflow for tile layout that
closely mimicked the workflow of mosaic artists, and did so over 10x faster than manual methods. The
goal of the Phase II research is to demonstrate the speed, effectiveness, utility, and artistic quality of this mosaic design and robotic assembly system. The key Phase II objectives are to: (1) demonstrate a
prototype artisanal mosaic design system and; (2) demonstrate a robotic mosaic production system, that
will be: (3) validated for accuracy, speed, and quality through user assessment, and; (4) evaluated for
economic and commercial potential. Anticipated technical results will enable a revolutionary
advancement from manual to automated processes in mosaic design and production, comparable to the
displacement of film by digital camera technology.

The broader impact/commercial potential of this project lies in art, design, construction, and
architecture. Software and robotic automation will lower the cost of mosaics and increase its traditional
societal impact of adorning public, commercial, and residential spaces. Artists, designers, and builders
will have a significantly faster method to produce artisanal mosaics without the high cost and
time associated with manual design and production. The efficiencies made possible by this proposed
computer-aided mosaic design and manufacturing system will enable Artaic to expand into the global
multi-billion dollar tile market and develop a domestic workforce to compete against global
manufacturers of handcrafted mosaic artwork. Additionally, the computational demands of the rendering
algorithms developed during Phase II will give impetus to further development of advanced GPUs and
CPUs -- with companies such as Intel, Nvidia, and AMD providing solutions for increasingly more
advanced rendering algorithms. Perhaps the most significant societal benefit from the development of
this technology is its potential to make artisanal mosaic design and production accessible and affordable
to the general public, and because this research enables any Photoshop artist to become a mosaic artist, it
also hold significant promise as an educational tool in our nation's schools.